Gordon Research Photonuclear Conference

The main objective of the Gordon Research Photonuclear Conference is
to provide the international community of nuclear scientists with a
unique forum in which the newest developments at the forefront of
this science can be presented and subjected to detailed and extended
discussions and criticism. The purpose of the conference is to
encourage communication and the discussions to be conducted in an
atmosphere conducive to open interactions between the scientists,
provoking new and even speculative ideas for future research. To
accomplish these goals requires the participation in all of the
conference activities of a significant number of leaders in the
field. The participation of younger scientists is essential to
address the future manpower needs of this rapidly changing field.
Therefore, bright and promising postdoctoral researchers and
graduate students have been specially selected for participation in
this conference and encouraged to present their ideas. Their
participation in this conference provides them with unique and
extensive access to the leaders in their field, exposes them to new
research opportunities and techniques and helps prepare them for the
leadership roles they will assume in the future. This award will
facilitate participation from these junior scientists.